Molecular Physiology Equipment for Undergraduate Laborator- ies and Independent Study

Seven courses in the biology curriculum have been targeted for inclusion of a molecular physiology component, both because of the role played by molecular physiology in modern biology, and because these seven courses involve both majors and non-majors at all levels of undergraduate education. Two spectrophotometers with flowcell, thermoelectric cell, and recorder interface, and one strip chart recorder now are enabling students (a) to perform experiments in enzyme and transport kinetics, (b) to conduct a variety of metabolic studies, and (c) to pursue aspects of molecular physiology in their independent research projects. These experiences better inform undergraduate students about comtemporary biology and better prepare majors for advanced studies, teaching careers, and professional work. The grantee institution is matching the NSF award with an equal sum obtained from non-Federal sources.